Collaborative Research: Quantifying controls on weathering of volcanic arc rocks

Chemical weathering turns rock into soil. Over long periods of time it also lowers carbon dioxide in the atmosphere. Knowing how fast soil forms on different rock types is important for sustainable farming and forestry. It is also important for understanding what drives the world’s climate over millions of years. This project uses three different methods to measure weathering and soil production rates on a variety of rocks in Puerto Rico and will involve two new measuring methods using isotopes. These rock types are common, easy to weather, and very important on a global scale. It brings together researchers at Purdue University and the University of Puerto Rico, Mayaguez. This grant brings new education and research opportunities to both graduate and undergraduate students at the two institutions, including Puerto Rican students, who are traditionally under-represented in STEM.

The goal of this project is to measure how the chemical weathering of volcanic and iron-rich igneous rocks depends on the supply of fresh minerals by physical erosion. This relationship is critical for understanding the role of tectonic processes for governing the global carbon cycle and climate through geologic time. The primary methods for determining long-term weathering rates will utilize the measurement of cosmogenic nuclides, which are produced by cosmic rays in minerals near Earth’s surface. These include a new method using cosmogenic chlorine-36 produced in the mineral magnetite, as well as an emerging method that uses cosmogenic beryllium-10 produced in the atmosphere and deposited onto the soil by rainwater. These long-term rates will be measured in a variety of watersheds with different rock types and physical erosion rates. They will be compared to short-term rates determined from measurement of dissolved minerals in stream water to explore the degree to which weathering is driven by short-term processes such as the exposure of fresh rock by tropical cyclone-driven landsliding, an important erosional process in Puerto Rico and elsewhere. This work is expected to contribute some of the first data that systematically address chemical weathering and physical erosion for a variety of rock types, and also serves to test and validate new and widely applicable cosmogenic nuclide-based methods. This project helps support and develop a new research relationship between scientists at Purdue University and the University of Puerto Rico, Mayaguez and brings new education and research opportunities to students at the two institutions, including Puerto Rican students, who are traditionally under-represented in STEM.